Scientific Management of the National Ice Core Laboratory

This Cooperative Agreement provides support for the formation of a Scientific Management Office (SMO) for the National Ice Core Laboratory (NICL), a facility in Denver, Colorado which is jointly managed and operated by the National Science Foundation (NSF) and the United States Geological Survey (USGS), and which provides a state-of-the-art, safe and controlled environment to preserve ice cores and an ice core processing area for investigators to conduct research . The Scientific Management Office (SMO) will be housed in the Climate Change Research Center (CCRC) of the Institute for the Study of Earth, Oceans and Space (EOS) at the University of New Hampshire (UNH). The Scientific Management Office for NICL (NICL SMO) will serve as a direct point of contact for principal investigators interested in access to ice cores. It will also facilitate the formulation of a new Ice Core Working Group (ICWG) that will represent ice core researchers and those in related disciplines whose research utilizes or applies to ice core research. The ICWG will investigate a wide range of topics related to ice core research including NICL oversight, sample access and distribution, inventory, policy issues and the development of a plan for future activities. Through yearly meetings and reports the ICWG will provide leadership and direction to the ice core community. Members of the ICWG will be elected by the scientific community and will serve on a rotating basis. The first Chair for the new ICWG will be the Director of the NICL SMO and will serve for one year until ICWG members elect a Chair. A Sample Allocation Committee (SAC) developed from members of ICWG will provide timely recommendations to NSF and USGS on sample allocation and core access for qualified investigators. A data management coordination system with existing data centers will be organized by the ICWG through the NICL SMO.